Organization of Conference on Broadband Analog Optoelectron-ics - Devices & Systems (held on July 23-25, 1990 in Monterey, California)

This meeting addresses the growing interest in using optoelectronics for broadband analog applications, especially cable television distribution and microwave signal transmission. Performance of optoelectronic devices such as lasers, modulators, and detectors determines the feasibility of most examples of these systems. By bringing together the technical communities representing device development, equipment manufacturing and system operation, the meeting will provide a unique forum for exploring the future of this field and for creating a better understanding of its needs and capabilities.